Theoretical Studies of Etching and Growth Dynamics at Surfaces

This project is in the general area of analytical and surface chemistry and in the subfield of theory of interfacial processes. During the tenure of this three-year continuing grant, Professor Garrison and her students will apply molecular dynamics techniques to an understanding of three important areas of surface processes, namely the molecular beam epitaxial growth of semiconductors, the etching of silicon surfaces by fluorine, and the interaction of energetic (KeV) particles with solid surfaces. This research, which builds on Professor Garrison's accomplishments under NSF grant CHE-8713796, represents significant practical applications of theory to complex, real-world problems of immense technological importance. In concert with state-of-the-art experimental studies of these systems in the laboratories of collaborators, Professor Garrison's research provides a unique framework both for the evaluation of theoretical constructs and for the theoretically guided execution of experiments. Additionally, this project offers a unique environment for the training of young theorists who will be well-equipped to address challenging problems in materials chemistry. This research impacts broadly on the technologically important areas of microelectronics fabrication, materials processing, and surface analysis.